Collaborative Project: Detailed Modeling of Radiation Transport in Supernovae

Baron, Edward AST-9731450 In a collaborative effort, Dr. Baron of the Univesity of Oklahoma and Dr. Hauschildt of the University of Georgia will continue their work of modeling the transport of radiation through a variety of astrophysical plasmas, with particular attention to supernovae. Their work focuses on applying the results of their modeling to supernovae and comparing theoretical predictions with observed data, as well as making continued improvements to their radiative transport code. Among the goals of their analysis are improving understanding of the connection between specific classes of supernovae and stellar evolution models of the progenitor star, and studying the effects of stellar parameters, such as the metallicity of the progenitor, on the observed spectrum and light curve and the use of all types of supernovae as distance indicators.